High Resolution Imaging Systems Laboratory

This project will develop a High Resolution Imaging Systems Laboratory which will provide facilities for undergraduate electrical engineering students to undertake design projects in sensor array processing, data fusion, machine vision, radar, video, and related fields.Senior electrical engineering students will work in teams on year-long design projects, where they will be involved with all aspects of engineering design, including preparatory theoretical studies and literature searches; hardware, software, and system design; project management and scheduling; component selection and ordering; as well as written and oral presentations and demonstrations, all under the guidance and oversight of an expert faculty advisor.Each project will involve the design and implementation of a complete imaging system residing on a personal computer or a high-powered workstation, or a standalone system that comprises specialized VLSI processors. The equipment acquired consists of the circuitry, devices, and computer hardware and software to acquire and process image data. It will permit the implementation of the various types of imaging systems described above. Both required and elective theoretical courses will be impacted by the proposed lab, allowing theory to be focused on the context of the design and application of real imaging systems.